Undergraduate Faculty Seminar: Hazardous Waste Incineration

Few practicing engineers and scientists, faculty, or students have a working understanding of the fundamentals and state-or-the-art knowledge of hazardous waste incineration. The objective of this seminar is to present a course and develop a problem workbook on hazardous waste incineration to address this need and resolve this technology gap. The course material will be drawn primarily from Theodore and Reynolds' 1987 Wiley- Interscience book "Introduction to Hazardous Waste Incineration." Problems and solutions in the workbook will be generated by an interdisciplinary team of engineering and applied science faculty. Topics include: regulatory considerations, stoichiometric and thermochemical calculations, incinerator design, ancillary equipment, dispersion calculations, computer software applications, and facilities design. The first draft of the problem workbook will be prepared during a two week summer seminar session in 1988. The 1988-89 academic year will provide an opportunity to classroom-test the effectiveness of the problems in the workbook. A three-day follow-up summer session in late June of 1989 is also scheduled to provide an opportunity to revise, update, and edit, the workbook, and finalize production and distribution plans for implementation in undergraduate engineering and applied science curricula. In addition to the NSF funds, participants' institutions will contribute about 10% in travel costs to the operation of the project. The grantee institution will provide another 20% toward the operation of the project.